Wealth and Racial Inequality

This Minority Research Initiation Planning Grant provides funds to Melvin Oliver to prepare a proposal on black-white differences in wealth. He will examine both the 1983 Michigan Survey of Consumer Finances and the ongoing Census Survey of Income and Program Participation.